Scholarship Assistance for Technology Students (SATS)

The Scholarship Assistance for Technology Students program at Northwest-Shoals Community College has the primary goal of inspiring motivation in academically talented program participants to complete a college core curriculum and graduate with AS degrees in computer science, engineering, or mathematics. The Alabama Appalachian area the College serves contains significant numbers of needy students from underrepresented groups who are currently enrolled in math, engineering, and/or computer science degree and non-degree programs. Students are given financial assistance and opportunity to study in these fields, graduate with either a two-year terminal degree in these fields or transfer to four-year colleges to complete their degrees. A solid foundation of networking between the College and local employers is used as a base for mentoring scholars and for placing the trained students into a career related to their education.